U.S.-Vietnam Cooperative Research in Simulation Studies of Strongly Interacting, Disordered Electronic Systems

9903843
Halley

This award supports initial stages of collaboration on study of two types of correlated electron systems, rare earth magnets and semiconductor quantum dots, between the Universities of Minnesota and Wisconsin, and Vietnam National University, Hanoi; the National Center for Natural Science and Technology, Vietnam; and the Technical University of Hanoi. The proposed research is an outgrowth of discussions held in Hanoi January 1998 during the Science and Technology Week, partially supported by NSF.

The Vietnamese have already established research strength in the area of rare earth permanent magnets, an important area for Vietnam, which has significant rare earth reserves. The combination of the Vietnamese experimental work in this area with the modeling support available through the collaboration is promising for a mutually beneficial research partnership. The work on quantum dots is relevant to an area of considerable interest, the failure of the simple random matrix theory model to predict the energy level structure of disordered quantum dots. Vietnamese scientists have experience in modeling that will complement the approach of the US team and will contribute to understanding this problem, which underlies much of the current fundamental experimental research in nanostructures.